Expedited Award for Novel Research: Optical Computing

A wave-particle duality processor is a distinctly non-Turing type of computer in two regards. First, its energy and speed requirements are unrelated to the computational complexity of the task. This results in huge, e.g. a factor of 108, energy savings over conventional computers. Second, the outputs can be rigorously stochastic and thus not Turing computable. The investigators propose to demonstrate such a processor and its properties in the laboratory as well as to study relevant phenomena such as coherence requirements, the connection with conservative logic gates, and the utility of rigorously stochastic calculations.